Spinor Condensates in Magnetic Fields

Spinor condensates possess rotational symmetry reflecting the spherical nature of ground state
atoms in Zeeman degenerate manifolds and isotropic s-wave atom-atom interactions. A nonvanishing magnetic (B-) .eld, unavoidable in real laboratory situations, breaks this symmetry
and causes different level shifts for different Zeeman states, profoundly changing condensate
properties. This proposal concentrates on theoretical studies of spinor condensates in magnetic
fields. The primary scientific objective is to advance the frontier of atomic quantum gases, especially the physics of spinor condensates, which with the ability of independent control for the
motional and internal degrees of freedom, are promising candidates for engineering nonclassical
atomic states and massive atom-atom entanglement.